Teacher Enhancement for Student Success (TESS)

*** 9453128 McCully This is a five-year proposal to provide 100 hours of teacher enhancement for the 2040 K-8 teachers of mathematics and science in Fresno Unified School District (California). The district program will focus on curriculum on the California adoption list with enhancement being done in conjunction with the California Renaissance project (SSI) and teams involving the California Mathematics Project and California Science Project. Schools will be involved as units of enhancement with no school starting mathematics and science at the same time. This project is being done in close coordination with the Fresno Urban Systemic Initiative. Cost-sharing is listed at $ 8,750,000 or 150% of the project. ***